Taxonomic and Phylogenetic Study of Western Atlantic and Eastern Pacific Miocene to Recent Corbulidae (Bivalvia)

9316363 Anderson PI will examine how tectonics, paleoceanography, paleoclimate and paleoenvironment affected evolution of an important group of shallow-marine bivalves, the Corbulidae. Study will include: 1) sampling units in Florida and the Atlantic coastal plain to supplement existing collections; 2) morphometric analyses; and 3) cladistic and stratophenic analyses to establish evolutionary relationships among species. This work will contribute to the large-scale Panama Paleontology Project, the goal of which is to document the closing through time of the Isthmus of Panama and the response of organisms to that process.